Conference: Connecticut Summer School in Number Theory 2024

The Connecticut Summer School in Number Theory (CTNT 2024) is a conference for advanced undergraduate and beginning graduate students, to be followed by a research conference, taking place at at the University of Connecticut, Storrs campus, from June 10 through June 16, 2024. Even though the northeast of the United States is a hotspot for number theory research, there is no instructional school in number theory that occurs in this region. Undergraduate and beginning graduate students who are interested in number theory may only have had an elementary number theory course during college. The CTNT summer school will achieve several outcomes: expose undergraduate and beginning graduate students to accessible topics that are fundamental to contemporary number theory; provide an environment where students interested in number theory can meet each other and network with students, postdocs, and faculty from institutions where number theory is a strong research area; train a diverse group of students on topics of current importance in number theory; allow advanced undergraduates and beginning graduate students to attend a research conference in number theory; videotape the lectures and post them online at a dedicated website to reach as wide of an audience as possible later: https://ctnt-summer.math.uconn.edu/

CTNT 2024 will consist of a 4.5-day summer school followed by a 2-day conference. The summer school will have six mini-courses on topics important to contemporary number theory that are not available in a typical college curriculum, such as elliptic curves, reciprocity, adeles and ideles, and class field theory. The courses will be complemented with course projects, daily invited talks, evening problem sessions, and discussion panels about aspects of graduate school (both for those already in graduate school and those thinking of applying). The conference will consist of several sessions with research talks in number theory, arithmetic geometry, and related topics, and it will be an opportunity for young researchers to present their work.